CT-ISG: Trusted Passages: Managing Distributed Trust to Meet the Needs of Emerging Applications

Abstract

PI: Ahamad; CoPIs: Lee and Schwan

Critical applications that range from operational information systems used in
government and commercial settings to those that run daily e-commerce
web services rely on distributed computing systems to produce, process,
and disseminate information in a trustworthy fashion. Attacks on such
applications and the underlying infrastructure can severely limit
their ability to meet end-user needs. The inherent complexity of applications,
technologies, and platforms in today's large scale distributed systems makes
it extremely challenging to create services that can continue to behave in
a trustworthy manner in the presence of attacks. In this research project,
a new approach is proposed to meet the trust needs of applications by
integrating modern system virtualization techniques with new methods for
runtime trust monitoring and assessment. This approach dynamically creates
and maintains an abstraction called a trusted passage that encapsulates
processing, storage and communication resources required by an application.
Such resources exist across distributed and potentially untrusted execution
platforms. Trust controllers, which monitor application execution, determine
at runtime when some resources associated with a trusted passages may have
become compromised and need to be replaced by others. Trusted
passages leverage new capabilities soon to be part of most, if not all,
computational and network platforms. Thus, even with an insecure Internet,
our goal is to continually assess the distributed computational platforms
being used by applications, and based on that information, provide trusted
services to critical applications. This research fosters close collaboration
among security and systems researchers and strengthens ongoing
interactions with multiple industry research partners.